Activation and Sexually Dimorphic Development of the Corpora Allata in Pharate Adult Manduca Sexta

Juvenile hormone (JH) controls the development of insects during juvenile stages and also, in many species, egg development in the adult females. In all insects JH secretion ceases at some time during the last larval stage thus permitting the insect to undergo metamorphosis to the adult stage. JH secretion resumes shortly before or after the emergence of the adult and promotes egg maturation. The processes by which the reappearance of JH prior to adult emergence is regulated are not known. The results of the proposed investigations will fill the gap in our knowledge about this critical event in the life of insects. The proposed studies will be done on the tobacco hornworm moth, Manduca sexta. This insect is used as a model for many physiological, biochemical and behavioral studies. We will examine the changes in the biosynthesis of JH during metamorphosis with standard biochemical methods, and investigate the neuroendocrine basis for the reactivation of JH biosynthesis. These studies are the first of this kind and will be of fundamental importance in the field of developmental endocrinology. Since Manduca sexta belongs to the order Lepidoptera, which includes some of the most destructive crop pests, the proposed studies may also have an important bearing on the development of new strategies for limiting the reproductive potential of pest species.